Wave-particle Interactions and Radio Emission Processes in Solar Terrestrial Environments

The investigator will formulate and numerically solve a fully self-consistent set of particle and wave kinetic equations, together with an instantaneous dispersion equation, to describe the interactions of electron beams and background plasma. This process involves the excitation of Langmuir waves, various non-linear processes, and the eventual emission of electromagnetic radiation. The main effort is to extend a new, generalized, weak turbulence theory - developed by the principal investigator - applicable to beam-plasma interactions in the solar and interplanetary environment. The new approach may also have major consequences in the general field of plasma physics research and the study of microscopic turbulent plasma processes in particular. In this phase of the research, the investigator will concentrate on the nature of the generalized nonlinear dispersion equation for weakly turbulent plasmas, and understanding of the nonlinear eigenmode.